Preliminary 14C Dating of Sedimentary Organic Matter from Glovers Park, NJ: Constraining the Timing of Atmospheric Carbon Dioxide and Methane Changes During the Last Deglaciation

Abstract
ATM-9819849
Erickson, J. Mark
Saint Lawrence University
Title: Preliminary 14C Dating of Sedimentary Organic Matter from Glovers Pond, New Jersey: Constraining the Timing of Atmospheric Carbon Dioxide and Methane Changes During the Last Deglaciation

This SGER award supports AMS 14C dating of bulk organic matter collected from cores taken from a small marl lake in NW New Jersey. Isotope data provide a detailed, continuous environmental record of the last deglaciation ( 18 kyrs. to Present). This study will provide adequate temporal coverage of these isotopic changes. Better age constraints are needed to compare this terrestrial/lacustrine record with similar European lacustrine records, and ice core isotopic, CO2 and CH4 data and the marine record. This study will help to better understand the changes that occurred in atmospheric composition during the last deglaciation.

T